Growth Proteins and Synaptic Plasticity

IBN 98-11592 ROUTTENBERG It is well established that only certain cells, in a restricted set of brain structures, are specifically dedicated to the function of memory formation and information storage. Dr. Routtenberg, while studying the molecular events underlying this storage process, has discovered such a cell in the hippocampus. This hippocampal structure has been known from clinical literature beginning in 1953 to play a central role in memory formation as its removal gives rise to a profound amnesia. Dr. Routtenberg will investigate the molecular events occurring in the genome in these individual cells using intronic probes to study DNA transcription of brain growth proteins during the process of synaptic change underlying information storage.